U.S.-China Cooperative Research: Publication of Monograph Entitled "Scientific Investigations of Early Chinese Glass"

U.S.-China Cooperative Research: Publication of Monograph Entitled "Scientific Investigation of Early Chinese Glass" This award is made under the Program U.S.-China Cooperative Research to publish a monograph edited by Robert H. Brill and John H. Martin of the Corning Museum of Glass, Corning Glass Works, Corning, New York, entitled: "Scientific Investigations of Early Chinese Glass (English Edition): Proceedings of The Archaeometry of Glass Sessions of the 1984 International Symposium on Glass, Beijing, September 7, 1984," which was held with the Annual Meeting of the International Commission on Glass under the auspices of the Chinese Silicate Society. Topics covered include: "The Early Glass of China"; "'A Glass Garment' from a Western Han Tomb in Jiangsu Province"; "Investigations of Some Ancient Chinese Lead Glasses"; "Chemical Analyses of Some Early Chinese Glasses"; "Similarities between Ancient Chinese Glasses and Glasses Excavated in Japanese Tombs"; "Chinese Glass Technology in Boshan around the 14th Century"; "Analyses of Some Qing Period Chinese Glasses"; "Physical Properties of Early Chinese Glasses"; "A Glass 'Bi' and a Decorated Sword from Hunan Province"; "Early Glasses Excavated in Hubei Province; "A Note on Some Lead-Barium Glasses from India"; "An Account of Qing Dynasty Glassmaking"; "Some Glasses from Zhou Dynasty Tombs in Fufeng County and Baoji, Shaanxi"; "Scientific Studies of Some Early Glasses Excavated in China"; "A Compilation of Lead Isotope Ratios of Some Ores from China"; "A Glass Spearhead from Guangxi Province"; "Some Glass in the Museum of Chinese History."